First Historically Black Colleges and Universities (HCBU) Workshop on Materials Research, Washington, D.C., May 17-19, 1990

This workshop would serve to bring together scientists from government and industrial laboratories and universities who have interests in the physics of materials and materials science and to establish a network that will encourage future collaboration among these scientists. The workshop will also provide a forum to discuss ways to stimulate minority graduate and undergraduate participation in materials science, to identify new areas of research, and to provide information on recent advances in materials science.